Understanding the role of nuclear speckles in muscle stem cells using intrinsic and extrinsic manipulation

Adult stem cells play critical roles in the regeneration of damaged tissue. However, these cells decrease in number, and their functions become impaired as a person ages. The molecular mechanisms underlying these changes are not well understood. Nuclear speckles are organelles inside cells that are involved in RNA processing. RNAs are nucleic acids that code for proteins, and their processing affects muscle stem cell functions. This project will combine cellular engineering, biomaterials, bioinformatics and genomic assays to study how RNAs interact with nuclear speckles and the effects of interrupting those interactions. The results will uncover new molecular mechanisms that will expand understanding of aging and potentially help address age-related muscle weakness and injury. The project will also provide elementary school students with educational coloring books containing illustrations of anatomy and cellular processes. Each illustration will be designed to introduce engineering and biotechnology concepts in an appealing way for young scientists and stimulate their interest in STEM fields.

RNA fate and processing are highly regulated in stem cells and nuclear speckles play important roles in regulation of transcription. Nuclear speckles are membrane-less biomolecular condensates that phase separate RNA and chromatin and influence splice-site selection and expression levels. However, no information exists for how nuclear speckles and splicing are modified in adult stem cells during aging. The development of systems to study basic biological processes such as aging and associated diseases are rooted in the ability to controllably engineer cellular state, which is linked to gene expression programs and RNA processing. This project will develop an inducible knockout of nuclear speckle systems specifically in muscle stem cells and profiled using high-resolution imaging, long-read single cell RNA-sequencing and RNA-protein interactions mapping. To link how microenvironmental changes that occur in old age impinge on nuclear speckles, muscle stem cells wrapped on myofibers and enveloped with engineered biomaterials that replicate aspects of an aging endomysium will be created. The effect on nuclear speckles, expression and stem cell expansion will be assessed. Project outcomes will advance our understanding of long-standing questions of how extrinsic molecular cues integrate to influence stem cell aging.